Design and Fabrication of Micromechanical Structures and Microactuators

This project will investigate micromechanical structures based on silicon processing technology. These micromechanical components, which are typically less than 1 mm2 in area and are fabricated by integrated circuit-type manufacturing techniques, include cantilever beams, movable elements, and suspended structures. Research emphasis is directed toward 1) investigation of active materials for micromechanical actuators, 2) the development of suitable microstructure processing technologies for making microactuators, 3) the design and fabrication of piezoelectric (ZnO, AIN) microactuators, 4) the design and fabrication of microactuators based on magnetostrictive thin films, and 5) the implementation of several test vehicle microactuators. These test vehicles include piezoelectric actuators based on surface-micromachined beam technology and movable elements based on thin film magnetic materials.